2009 Shipboard Scientific Support Equipment

ABSTRACT

06 July 2009
Proposal Number: 0917655
Institution: Woods Hole Oceanographic Institution
PI: A. Suchy

The proposal requests five Shipboard Scientific Support items for Woods Hole as well as other vessels in the academic fleet; namely up-graded deck structure aboard the R/V ATLANTIS to support ROPOS, a group purchase of six (6) additional Fleet Broadband satellite communications systems including expanded satellite time to continue the 2008 pilot project, a new autopilot for R/V OCEANUS, and additional design work for and purchase of a portable A-frame to support the GEOTRACES cruise aboard the global class vessels. All items will either enhance safety or provide greatly improved support capabilities to science.

Broader Impacts: Woods Hole vessels support federally funded scientific research throughout the world’s oceans and routinely expose graduate and undergraduate students to seagoing oceanography. All told, the KNORR, ATLANTIS, and OCEANUS are scheduled to complete over 550 NSF sponsored days in 2009.